Neutron Stars: Searches, Planets and Kinematics

Cordes, James 95-28394 Dr. Cordes will address a wide range of topics which concern neutron stars and their uses for probing the interstellar medium. Specifically, he will improve the Talyor-Cordes distance model, construct a model radio pulsar beam to determine pulsar parameters and distances, search 150 pulsars for the presence of planets and asteroids by analyzing their pulse timing, study the initial velocity distribution of pulsars, search for new pulsars, and continue to analyze white dwarf companions of new millisecond pulsars looking for pulsar wind nebulae. ***